Collaborative Research: What Happens to Terrestrial Organic Matter in the Ocean? Solving the Mystery Behind an Iconic Question

The Amazon River is one of the largest and most important rivers in the world. It not only carries water through the Amazon rain forests, it also carries mud - lots of mud. This mud settles when the river joins the ocean, forming the Amazon delta. Waves and wind re-suspend some of this mud, which forms mud banks that slowly move from the coast of Brazil, to French Guiana, Suriname, and Guyana. Not only do these mud banks shape the coastlines of these areas, but they also serve as a storage for carbon that had been removed from the atmosphere by the Amazon rainforest, dropped to the forest floor and washed into the river, ultimately transported on particles of mud into the Amazon delta. Normally, this represents a transfer of carbon from the atmosphere to the sediment and rock record, hiding it away for thousands to millions of years and participating in the natural regulation of atmospheric carbon dioxide concentration. However, the Amazon's special case of mud banks that travel hundreds of miles along the coast has long been believed to stir up this carbon and release most of it back to the atmosphere. This idea has held for decades, but if wrong, may have a large impact on our understanding of the ocean's carbon cycle. This research will use new science and technology to change the way we look at river carbon cycling in the ocean by sampling the mud banks, ocean waters, and Amazon River waters more thoroughly than has been previously done, with the aim to understand and quantify the storage of land-derived carbon in marine mudbank sediments offshore the Amazon River. This research will serve as the core of two Ph.D. dissertations and will interface with the Woods Hole Partnership Educational Program (PEP) to provide under-represented minority college students an opportunity to gain practical experience in marine and environmental sciences. The project will also be incorporated into the Saint Petersburg Science Fest, an event that brings several thousand school children to University of South Florida campus during one weekend every autumn to showcase different research projects and initiatives.

Twenty years ago, John Hedges posed a seminal question pertaining to the role of the ocean in the carbon cycle: "what happens to terrestrial organic matter in the oceans?" That question was set upon a conundrum - because riverine organic matter is highly degraded, it should be expected to suffer minimal respiration in the ocean, yet by most accounts continental margins seem to be incinerators of terrestrial organic matter. However, much of this paradigm was originally built upon biogeochemical studies of the Amazon sub-aqueous delta and the mobile fluidized mudbanks along the Guianas coast. However, preliminary state of the art characterizations of organic carbon in Amazon River and mudbank sediments suggest that a fraction of terrestrial organic carbon is actually not refractory and as such is rapidly and efficiently oxidized in the ocean, whereas another fraction is refractory and is in fact quantitatively preserved in marine sediments. Overall, the data suggest an underestimation of burial efficiency in the realm of 50-100%. This proposal focuses on gaining a transformative mechanistic and quantitative understanding of the fate of terrestrial organic carbon in the coastal ocean offshore of the Amazon River. This will be done through i) sampling the marine province offshore of the Guianas coast (the Guianas mudbanks) as well as the Amazon River delta, using a shallow-draft research vessel and ii) using novel state of the art geochemical analysis of organic carbon - in particular ramped oxidation and compound specific radiocarbon analysis - and elemental composition to demonstrate the selective nature of terrestrial organic carbon oxidation and provide new estimates of burial efficiency of this system - with implications for the global inventory of terrestrial organic carbon in the ocean.